OptiComm 2003 Conference: Student Travel Grants; Dallas, Texas; Oct. 13-17, 2003

This award will provide travel support for approximately twelve graduate students to attend the Fourth Annual International Conference on Optical Networking and Communications (OptiComm 2003: http://www.opticomm.org) to be held in Dallas, Texas from October 13-17, 2003. The travel award will target graduate students, since attending conferences is an important part of their educational experience, and they often have limited funds. Opticomm is a highly esteemed international conference series that have endeavored to provide researchers and professionals with a cutting-edge forum to exchange and publish their work and ideas.